Procurement of Triaxial Equipment in Support of GeotechnicalResearch

A triaxial loading frame with a freezer attachment, high-speed microcomputer, and electromechanical transducers will be procured to provide necessary support for several research projects in the geotechnical area. The acquisition of this equipment will bear directly on research on stress-strain behavior of fine-grained granular materials, frozen geomaterials, and new liner materials for isolation of hazardous waste. The microcomputer will be integrated with other equipment such as the triaxial device, a newly developed multiaxial device, direct shear apparatus, and permeability apparatus. This microcomputer is designed for a multiuser environment, and provides the necessary speed for a multiple-experiment environment. The triaxial equipment with freezer chamber will be used in studying fracture mechanics of frozen geomaterials. The freezer chamber is detachable so the equipment can be used for other projects as well. The equipment will be used primarily in four ongoing research projects dealing with stress-strain behavior of mine tailings materials, fracture mechanics of frozen geomaterials, strength and deformability of new liner materials, and stabilized grouts.